Mathematical Sciences: Families of One-Dimensional Transformations

9404280 Swiatek The research entails parameter dependence in families of one dimensional mappings including endomorphisms of the circle and unimodal transformations of the interval. Higher dimensional generalizations are expected. This research has a relationship with hyperbolic dynamical systems and has potential applications to physics and biology. ***